Multidimensional Nonseparable Subband Coding

This research is providing a parameterization of the entire family of multidimensional perfect reconstruction subband coding filter banks. The motivation for doing this lies in practical application of efficient coding and compression of image (video) type signals. The parametric description of the family of multidimensional filter banks so obtained is being used to design perfect reconstruction filter banks having desirable frequency separation properties. The entire family of nonseparable multidimensional smooth wavelets resulting from iterations of these filter banks is also being completely parameterized in this way. The techniques being adopted essentially consist of those from multidimensional system theory. The biorthogonal problems are being approached by formulating them as matrix extension or matrix completion problems in the ring of multidimensional polynomials or stable proper rational functions; and the paraunitary problems as problems of describing, or equivalently, synthesizing multidimensional lossless systems. Similar strategies are being used in the acausal formulation as well as in dealing with special classes of solutions such as the linear phase solutions.